The Technical foundations of prosperity

The workshop brings together researchers at the intersection of technology and economics to help understand the large technical trends that are changing how computing is done, how these trends are evolving, and what this will mean for the benefits provided to society. Participants include both those interested in the microeconomics of technology and those interested in the technological foundations of prosperity and economic growth.